SSC: Cape Fear Summer Science Camp

SSC-9353260 Kishton, Joseph M. University of North Carolina at Wilmington Wilmington, NC "Cape Fear Summer Science Camp" Cape Fear Summer Camp is a four-week summer program combined with academic year follow- up activities aimed at increasing minority representation in the areas of science, engineering and mathematics. Objectives of the program include providing students with hands-on experience developing the process skills of observation, measurement and analysis. Successive groups of fifty minority students will be taught by experienced public school science and mathematic instructors. Classroom and laboratory instruction will be integrated with field exercises with a coastal science emphasis. Some of the accomplished graduates from each group will serve as peer mentors for subsequent students and will also participate in focused career exploration activities including involvement in mentoring relationships with professionals working in science, technology and engineering occupations.